GP-IMPACT: COLLABORATIVE RESEARCH: Integrating Geoscience to Engage Majors with Mathematics: iGEM2

Part I
Entry level math courses in college often form a roadblock for STEM-intended students, particularly when students do not test directly into Calculus when they enter college. This is certainly true at The University of Texas at Arlington (UTA), an access-oriented university, and remains a challenge faced by universities across the country. Calculus is the first mathematics course in all natural science degree plans at UTA; however, Algebra or Precalculus are common mathematics entry points for STEM-intended majors especially those who begin their major through nontraditional pathways. In spring of 2018, 48% of all UTA undergraduate students entered UTA as transfer students, and 42% of all UTA undergraduates were first generation students. Given these statistics, and the fact that the proposed work will directly affect ~1000 students per semester at UTA taking College Algebra and Precalculus, this project will have an enormous impact on a diverse population of at-risk students who aspire to graduate with a STEM degree, but are also largely unaware of opportunities in the geosciences. We will recast College Algebra concepts in the context of societally relevant Earth Science themes without changing the content of the current course. In this way, we will empower beginning STEM students by placing abstract mathematical concepts in a scientific context at a critical transition which constitutes statistically a major stumbling block for many of STEM-intended majors. This is a new strategic partnership, as the geosciences incorporate research methods from across all of STEM and are therefore likely to be relatable to a broad range of STEM-intended students. At the same time, it will expose students early in their college experience to geoscience as a potential major or career. Success of the project will be determined by monitoring D-F-W rates of this course, evaluate students' perceptions of the geosciences and confidence in mathematics, and tracking students through declaration of their major and beyond. We will test the transferability of this model by implementing it in the Precalculus course at UTA during the second year of this continuing project and using the College Algebra redesign in the equivalent course at Tarrant County College in Fort Worth, Texas to gauge its effectiveness and transferability across institutions.

Part II
At The University of Texas at Arlington (UTA), mathematics courses leading to Calculus constitute a major obstruction to success for alarming numbers of STEM-intended majors. This fact reflects a challenge faced by universities across the country. Our goals are to (1) improve success of intended STEM majors at UTA in mathematics courses that lead to Calculus, courses taken primarily by STEM-intended majors, but yielding D-F-Withdraw rates >60%, and (2) introduce first and second year students to the geosciences and related career pathways before they decide on a major, thereby increasing the number and diversity of students who choose to major in the geosciences. We will do this by first modifying College Algebra by integrating geoscience concepts into the mathematics curriculum and lab components, reaching approximately 1,000 students per semester at UTA. Video presentations featuring current research of faculty, students, and geoscientists in industry and related fields will motivate a societally relevant Earth Science theme and delineate how a particular algebraic skill is essential for his/her research or job. Concepts introduced in these videos will be developed and incorporated into homework assignments, challenge problems, and lab exercises involving problem-solving activities that synthesize mathematical concepts and apply the concepts to problems related to the Earth Science theme. In this way, the mathematical abstraction will be connected with geoscience content crossing the fields of geophysics, environmental geochemistry, hydrogeology and oceanography. This is a strategic partnership, as the geosciences incorporate research methods from across all of STEM and are therefore likely to be relatable to a broad range of STEM-intended students. This collaboration will empower beginning STEM students by placing abstract mathematical concepts in a scientific context at a critical transition, which constitutes statistically a major stumbling block for many STEM-intended majors. At the same time, it will expose students early in their college experience to geoscience as a potential major or career. This project is possible by building upon a new partnership between the School of Earth Science at The Ohio State University and Mathematics at UTA. Success of the project will be determined by monitoring D-F-W rates of this course, evaluate students' perceptions of the geosciences and confidence in mathematics, and tracking students through declaration of their major and beyond. We will test the transferability of this model by implementing it in the Precalculus course at UTA during the second year of this continuing project and using the College Algebra redesign in the equivalent course at Tarrant County College in Fort Worth, Texas to gauge its effectiveness and transferability across institutions.